Oceanographic Instrumentation

9988596
Coale
This award to San Jose State University will provide instrumentation for oceanographic research for use on R/V Point Sur, a research vessel operated by the Moss Landing Marine Laboratories as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired for shipboard use includes slip rings, thermal chart recorder, wireless local area network for connecting the ship to laboratory computer system, solar radiation sensor, dissolved oxygen sensor, PAR sensor and LCD monitor. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly along the California coast, during 2000 and future years.
***